Balanced Realizations in System Theory, Approximation and Stabilization

The first two objectives of the proposal are to investigate the asymptotic
stabilization and the approximation of infinite dimensional linear systems.
When infinite dimensional systems are being stabilized it is usually
attempted to find a state feedback such that the closed loop system is
exponentially stable. The PI has shown recently that there is a class of
systems for which no feedback can be found such that the closed-loop
system is exponentially stable. But a state feedback can be found such that
the closed loop system is asymptotically stable. It is proposed to continue
this investigation to obtain a clear understanding of the systems that can be
asymptotically stabilized. The second objective of the proposed work
deals with the approximation of infinite dimensional systems using
balanced realizations. Progress on both objectives depends on improving
the understanding of infinite dimensional par-balanced systems. In
particular it is expected that significant progress will be made in the
investigation of so-called definitizable par-balanced systems. These
systems are symmetric in an indefinite inner product space and the main
operator is definitizable. The third objective is to implement system
identification algorithms in various areas of applications.

These algorithms will make use of balanced parameterizations, which
were developed by the PI because of their potential superiority over
conventional parameterizations. Fundamental engineering problems are
the stabilization of unstable processes and the approximate description of
complex dynamics by less complex mathematical models which
nevertheless capture the important aspects of the full process. Such
approximate models are often needed since they are amenable to
computations and current engineering design methods. A significant part
of the proposal is devoted to solving problems that have been identified in
the course of a collaboration with molecular biologists who are working
on biotechnological problems such as the investigation of protein-protein
interactions. Experimentation by surface plasmon resonance biosensors
and NMR spectroscopy lead to complex modeling and data analysis
problems. Earlier theoretical results by the PI will be used to develop
computational tools to improve on currently employed methodologies. An
interesting aspect of this proposal is that the three topics can be
investigated using mathematical tools which are known as balanced
realizations.